Technology Instruction for the 21st Century

Multimedia-based curriculum materials have been developed to support technology education in data acquisition, embedded systems, and multimedia and high speed networks. These materials, which include networked laboratory manuals, text and student exercises, are available in a modular format to facilitate their incorporation into technology education courses at other institutions. A significant evaluation component is included to assess the effectiveness of the multimedia materials, especially with respect to learning outcomes for members of underrepresented groups. Six one-week summer workshops (two each year over a three-year period) are offered to disseminate products completed in the project and to assist faculty to develop the capability to author effective multimedia-based instructional materials.